Laboratory Instrumentation for Inorganic/Physical Chemistry

The Department of Chemistry is purchasing a diode array uv/vis spectrophotometer for use in several upper division laboratory courses. With the aid of this equipment new experiments reflecting the importance of inorganic materials and bioinorganic chemistry are being introduced to the undergraduate curriculum. The study of the size-dependent bandgap and particle size of semiconductor clusters and the oxidation of iron porphyrin complexes are two examples of the innovative